EXCON '98 - Third International Conference on Excitonic Processes in Condensed Matter; Boston, Massachusetts; November 1-6, 1998

9804724 Yen This proposal requests support to enable 10-12 graduate students to attend and participate in the EXCON'98-Third International Conference on Excitonic Processes in Matter. This bi-annual conference will be only the third held so far. The two previous conferences were held in Darwin, N.T., Australia (1994) and in Bad Schandau, Germany (1996). The presently scheduled conference is the first to be held in the USA, in Boston, MA, Nov. 1-6, 1998. Being held in the USA it promises to attract a large number of the researchers located on the North American continent because of the minimal travel cost. It will thereby assist the research conducted in this field by U.S. investigators through the provision of a major means communication and interaction. The nature of the subject, excitons in condensed matter, is interdisciplinary and the conference brings together researchers from physics, chemistry, materials and the biological sciences. This conference has the endorsements of IUPAP and IUPAC. %%% This proposal requests support to enable 10-12 graduate students to attend and participate in the EXCON'98-Third International Conference on Excitonic Processes in Matter. This bi-annual conference will be only the third held so far. The two previous conferences were held in Darwin, N.T., Australia (1994) and in Bad Schandau, Germany (1996). The presently scheduled conference is the first to be held in the USA, in Boston, MA, Nov. 1-6, 1998. Being held in the USA it promises to attract a large number of the researchers located on the North American continent because of the minimal travel cost. It will thereby assist the research conducted in this field by U.S. investigators through the provision of a major means communication and interaction. The nature of the subject, excitons in condensed matter, is interdisciplinary and th e conference brings together researchers from physics, chemistry, materials and the biological sciences. This conference has the endorsements of IUPAP and IUPAC. ***